Educating Engineers to Design Complex Systems

9315476 Denning This award of $156,000 is for curriculum development in complex systems design. This project will bring into the design portfolios of engineering students a selection of practices and tools used by researchers in engineering and science to deal with large systems. Each selection will be designed as a module consisting of handbooks, simulations,demonstrations, software systems, and specifications of experiments. Each module will be developed by an interdisciplinary team of three faculty and one graduate student. Each team's mix -- computer science, computational science and informatics, and school of education -- will assure that the source discipline's thinking will be part of the module. The proposed project will complement and leverage a major ARPA project dealing with high performance computing in the curriculum. The proposed project will also complete a suite of initiatives undertaken by the Computer Science Department at George Mason University to transform undergraduate education.